Mechanisms of Kelp Forest Regeneration

This investigation is a continuation of long-term research on the causal mechanisms producing widespread loss and regeneration of temperate kelp forests. In southern California, kelp forest regeneration usually involves the simultaneous colonization of several species of brown algae. The regenerative processes involving the microscopic recruit stages of these algae, however , are poorly understood. This research will focus on the mechanisms promoting simultaneous algal colonization. The major areas of study will be 1) patterns and environmental causes of spore release in three extremely morphologically distinct taxa of colonizing brown algae (the large kelps Macrocystis pyrifera and Pterygophora californica and much smaller filamentous brown algae), and 2) mechanisms promoting competition between these algae once spore settlement occurs. In the mature forest, algal assemblages are regulated largely by adult interactions. Established patches or canopies can persist for many generations by resisting invasion from other species. Consequently, following widespread forest loss, regenerative processes pertaining to spore availability and early competition may be of crucial importance because these processes can have long term consequences affecting the structure of the mature forest community.